A Theory of Vague Expectation

In prior work supported by the NSF, Professor Van Fraassen has examined the possibility of an epistemology for science compatible with empiricism. He focussed special attention on the tension between Bayesian and traditional epistemological models of theory change and accommodation of evidence. He found a possible form of reconciliation through the theory of a priori expectations of future (posterior) probability distributions. Crucial to the view developed to date the modeling of opinion through probability functions, but in a way that allows for vague, qualitative, and comparative judgments of opinion, admitting numerical probabilities only as a limiting case. Many relevant theorems transpose easily from numerically precise to vague opinion, but many do not. The aim of the project which Professor Van Fraassen is now undertaking is to develop this indispensable subtheory.